Minority Student Research Experiences (Engineering)

This University of Oklahoma College of Engineering project involves three separate but related components covering the total spectrum of development and experience that a student needs in order to understand the value and rewards of a career in research. The three components include a 1) Summer Academic Enrichment Program for minority high school graduates, 2) a university based research experience, and 3) an industrial based research experience. The Summer Academic Enrichment Program focuses on academic development and introduction to research careers. The overall goal for this program is to assist the students in achieving their academic potential by having the participants enroll in six hours of college credit including English and mathematics courses. The participants also are involved in writing and math labs each day plus Academic Orientation and Person Development Workshops. The second and third components of the project include research opportunities for participants in both the university and in industry. The project allows for flexibility. Some participants may participate in only one or two of the components. However, the goal is to produce students who have gone through all three components. This project should produce a group of talented minority students trained and motivated to continue in research and graduate school opportunities.